Engineering Research Equipment Grant: Scanning Electron Microscope

Among the studies which will be aided by this new instrument are: prevention of industrial scale, crystallizer dynamics, kidney stone research, and dental mineralization. This grant will enable a new scanning electron microsign to be purchased.